Automated Carbonate CO2 Preparation Device for Isotope Mass Spectrometry in Paleoceanography, Marine Biology, and Rock Geochemistry

Funds are provided for the purchase and installation of an autonmated carbonate preparation device to be attached to an existing VG Mass Spectrometer used for oxygen and carbon isotopic analyses. The device allows the analysis of a large number of samples without manual manipulations, increasing the output manyfold. The instrument will be used widely for paleoceanographic research.